Seismological Determination of Mass Ejection Rates of Explosive Eruptions

9903085
Kanamori

The main objective of this project is to develop methods to directly measure the ejected mass in volcanic eruptions as a function of time by combining a fluid mechanical model with seismological data. A secondary goal is to use the measured mass ejection rate to study the initiation process of volcanic eruptions. The eruptions to be studied include 1) the 1964 Shiveluch eruption in Kamchatka; 2) eruptions at Karymsky, Kamchatka, during the summer of 1997, for which high quality digital data are available; 3) small eruptions of Mount St. Helens which continuied throughout 1980; 4) several erutpions of mount Asama, Japan; and 5) the 1991 eruption of Mount Pinatubo in the Philippines. The information obtained from this study will provide constraints on the characteristics of volcanic eruptions and will also be important for quantifying volcanic hazards. For example, the measured mass ejection rate will provide a direct constraint on dynamical models of an eruption. At Mount St. Helens, the blast had an exceptionally large mass flux compared to later events. This difference may clarify the distinguishing features of blasts and help account for their disproportionally devastating effects.